Second-Order Inelastic Analysis for Frame Design

This research involves (1) the development of procedures for consideration of member inelastic stability effects in practical second-order inelastic analysis of steel frame structures, (2) the consideration and characterization of various methods for practical second-order inelastic analysis; (3) the investigation of appropriate limit state provisions that would need to be satisfied for proper design based on different methods of inelastic analysis, and (4) the definition of flexible computer- aided design methodologies which will allow the engineer to incorporate inelastic analysis in the process of proportioning steel frame members and connections.